Durability Factors for Calcareous Porous Rocks

9711087 Gauri This proposal is to develop new durability factors, DF, based on pore-size distribution., for calcareous porous rocks, limestones and dolomites. Existing criteria for rock soundness are based upon the damage caused by the crystallization of salt and freezing of water in the pores; however, these criteria have often failed to predict accurately the actual service life. Wetting, freezing, salt crystallization, and expansion of clays are the major sources of disruptive pressure that develop in the pores of the stone. The increase in pressure in the pores given by dp -- 2-y ((dA) (dA)R)l where y is the surface tension and A dV dV and V are the area and volume of small (r) and large (R) pores, suggests that the pore size distribution should be a fundamental factor in the durability of stone. Using mercury porosimetry to determine pore-size distributions and by training the computational method of Artificial Neural Network (ANN ), the PI has developed durability factors (DF) for the differentially weathered strata of the Sphinx. These predicted values correlate well with the present condition of the strata after their exposure to weathering for nearly 5000 years. The proposed research plan will include older rocks, such as the Mesozoic limestones of Texas and the Paleozoic limestones found in Mid-America older rocks, where the porosity has been altered by a variety of complex processes concerned with the recrystallization of calcite. Also included will be even younger limestone from Florida of Cenozoic and Quaternary age. Dolomite will be studied as representative carbonate rocks where porosity has been completely altered. By extensive field study the PI plans to develop a column or columns of weathered limestone, irrespective of age, in which the strata are ordered according to their durability and assigned DF from one to ten. Pore-size distributions will be determined for the unweathered samples of these rocks obtained from the deeper in terior or from nearby recent roadcuts and quarries. These distributions will be made the dependent variables while the DF will be the independent variables in the training of ANN. This proposal then aims at developing model equation(s) to predict DF for many types of porosity distributions found in limestone and dolomite. ***